Mathematical Sciences: Geometric Function Theory in Several Complex Variables

The general area of research encompassed by this project relates to the theory of several complex variables and partial differential equations. One question of particular concern is that of the uniqueness of continuation in Cauchy-Riemann manifolds. Basically these studies involve questions of whether or not a holomorphic function of several variables can be constant along various submanifolds of a domain without being constant everywhere. A second aspect of the work will focus on the properties of sets preserved under holomorphic mappings between spaces of different dimensions. Much of what is intuitively obvious in the one dimensional case turns out to be false in higher dimensional settings.